ADVANCE Leadership Award: Breaking Through the Glass Ceiling in Academic Science and Engineering

This award supports development of tools for institutional transformation to address the under-representation of women in academic science and engineering, including training materials, web pages and other resources to enable people to apply research findings in the development and application of best practices. Ultimately, the knowledge base of legal cases and social psychological research, combined with an effective public outreach and dissemination strategy, will be available to academic leaders and faculties seeking to understand and address both the causes of and solutions to the under-representation of women in science and engineering.

The project seeks to develop a compelling business case for gender equity. through readily accessible information about major patterns of glass ceiling and maternal wall bias and stereotyping, based on a comprehensive literature review of social psychological studies and social cognition theory. The project brings together a unique combination of legal experts and social scientists to develop materials that will promote equity in sciences and engineering. The project reflects integration of cutting-edge research with effective dissemination techniques.